Topics in Hadron and Flavor Physics, and Yang-Mills Integrability

This grant supports a broad range of research in subatomic theory.
Work in four particular directions will receive NSF support, two each
by the PI and co-PI. However, these two researchers have interests in
each other's work, so collaboration between the two is possible in any
of these topics.

Lebed and a collaborator will analyze the excited states of baryons
(such as protons and neutrons) using a new formalism that has been
developed for studying these short-lived states. He will also work to
uncover the nature of patterns among the measured parameters from the
masses and mixing of neutrinos, particles that emerge from both nuclear
reactors and the sun.

Belitsky will continue developing an approach to discern the most
detailed possible information about the interior structure of protons,
neutrons, and other strongly-interacting particles. He will also
pursue his studies of a hidden symmetry that helps to shed light on the
fundamental nature of quantum field theories with strong interactions.

This grant will provide not only support to the PI and co-PI, but a
postdoctoral research associate as well. Such a group of critical mass
should be much more effective not only in producing published results,
but also for disseminating our research findings as broadly as
possible.